Competitive Exchange and Information Aggregation in Computerized Environments

This research uses laboratory experimental methods to study behavior in a variety of computerized economic decision-making environments. All of the experiments use human subjects acting under a cash reward structure. The resulting experimental data are used to evaluate the predictive ability of models of individual and aggregate market behavior as well as the sensitivity of market outcomes to variations in the institutional rules that define the structure of market information flows. The performance of three distinct trading institutions (double auction, posted offer, and sealed bid-offer auction) are studied in markets where the competitive equilibrium is nonstationary. Other topics of inquiry include: the effects of introducing short selling opportunities into asset markets where speculative "price bubbles" are regularly observed; the ability of asset markets to convey and aggregate asymmetric information regarding the intrinsic value of the asset; tests of the competitive model using a "hostile" parameterization of an experiment where two demand-interdependent commodities are traded concurrently via the double-auction institution.